Quantum Foundations and Quantum Information

0139974
Griffiths
Much of modern technology, including computers, lasers, and magnetic
resonance imaging, utilizes the principles of quantum mechanics, the
physicist's most fundamental theory of nature, and would not be possible if
this theory had never been invented. Given this success, one might suppose
that quantum mechanics would by now be as well understood as other foundation
stones of modern science, such as thermodynamics and relativity theory. On the
contrary, as Richard Feynman, one of the great physicists of the 20th century,
once put it, "Nobody understands quantum mechanics." The lack of a clear
understanding, to which Feynman was referring, has not, obviously, prevented
quantum mechanics from being applied to a vast range of technological devices.
But students are frustrated when they try and learn the subject from teachers
and textbooks whose lack of clarity illustrates the truth of Feynman's remark.
Clearing up the conceptual mess in its foundations would certainly not detract
from, and might even assist in, the technological applications of quantum
mechanics, and could well prove important for future developments in areas such
as quantum computation and quantum cryptography, where impressive advances are
accompanied by equally spectacular gaps in our current understanding.

This research project, as indicated in the title, has a double focus.
One is the use of quantum histories - a promising approach developed by various
people including Murray Gell-Mann, a Nobel laureate who at one time was
Feynman's colleague at Cal Tech - for addressing and clearing up the conceptual
difficulties in the foundations of quantum theory. Several major paradoxes,
including the famous double slit, have been resolved using the histories
approach, and this method gets rid of mysterious long-range influences that are
present in some older interpretations of quantum mechanics, and which are hard
to reconcile with relativity theory. However, up till now these new
developments have been confined to the technical literature, and they need to
be moved into classrooms and textbooks if they are to make the subject more
accessible to the next generation of scientists. There is plenty of work to be
done, both in making abstract mathematical formulations more understandable
through simple physical examples, and in convincing teachers and textbook
writers that students deserve something better than the traditional
("Copenhagen") approach, the one Feynman could not understand.

The second focus of this research is quantum information theory, the
fundamental science behind both quantum computing and quantum cryptography.
Classical information theory was developed half a century ago by Claude
Shannon, and plays an important role in the modern theory of communication, as
in the efficient use of weak radio signals to transmit information from distant
space probes to the earth. Quantum information theory generalizes Shannon's
ideas to situations where quantum effects are important, and while it has had
some notable successes, it has also run into the following difficulty:
Shannon's formulation is based on the use of probabilities, but incorporating
probabilities into quantum mechanics in a consistent way is the source of many
of the conceptual difficulties that troubled Feynman. The histories approach
resolves the problem of quantum probabilities in a consistent manner that
allows an immediate extension of many of Shannon's ideas into the quantum
domain. Whether this provides a satisfactory foundation for quantum
information theory remains to be seen, but it looks promising. If it succeeds,
there will be a double benefit: a clearer understanding of what quantum
computing and cryptography can and cannot do, and a new way to think about
quantum mechanical processes in terms of the generation and transmission of
information.